RIA: The Application of Boolean Satisfiability Test Pattern Generation for Non-Stuck-At Faults

The Boolean satisfiability method for testing combinational circuits generates test patterns in two steps. First, it constructs a formula expressing the Boolean difference between the unfaulted and faulted circuits. Second, it applies a Boonlean satisfiability algorithm to the resulting formula. This differs from most current approaches to testing which directly search the circuit data structure. This method has been shown to be effective in identifying defective combinational circuits when the defects can be modeled by the single stuck at fault model. This research is extending the Boolean satisfiability method to handle a wide variety of nonclassical faults. Modifications to the method to detect bridging and delay faults are being investigated.